An Innovative Computing Curriculum for Scientists, Engineers, Mathematicians and Educators

9354818 Newman As computing continues to become an essential and integral part of the basic skills of all undergraduates, it is critical that the service courses for non computing majors reflect the advances made within the computing disciplines. This project integrates recent developments in computer based techniques with the current best educational practices to create an innovative computer curriculum for Scientist, Engineers, Mathematicians, and Educators. The curriculum is based on an emphasis of solution correctness, team orientation, and the use of advanced languages, tools, and application packages. This foundation is combined with the fundamentals of the Software Engineering, Object Oriented, and Cleanroom paradigms to provide the skills necessary for each undergraduate to take advantage of potential computers can provide them in their educational and professional careers. This project produced the foundation for three sequences of introductory level computing service courses. The courses were categorized as application based consumer computing, software development of small projects by a single individual, and large scale, team based, system development. The initial motivation for these sequences of courses was based on the innovative curricula at Florida Tech. The foundation for the course sequences developed by this project included an analysis of the expected needs of the academic majors, a set of evaluation criteria, and a set of preferred educational paradigms for course development. Initial course outlines were prepared, sample multimedia presentation were developed, and a sequence of reports were produced. This effort also produced several general conclusions and a proposal for the continuation of this project. ***y